Collaborative Research: Bloom Dynamics and Food Web Structure in the Ross Sea: Dynamics of Dissolved Organic Carbon

9317200 Hansell The growing season for phytoplankton in polar oceans is short, but intense. There is an increasing body of evidence that in many Antarctic habitats, the most active period may be very early in the season, a period that has not been emphasized in previous investigations. This project is part of an interdisciplinary program that focuses on the dynamics of the spring phytoplankton bloom in a highly productive subsystem of the Antarctic, the Ross Sea. The overall program will test hypotheses related to the initiation of the phytoplankton bloom shortly after the onset of ice melt, the mechanisms controlling phytoplankton growth and productivity in spring, the implications and short-term fate of high productivity in spring, and the transition from spring to midsummer conditions. The overall goal of this proposal is to determine the importance and role of dissolved organic carbon (DOC) as an intermediate in the carbon cycle of the Southern Ocean. It is estimated that almost 1000 gigatons of reduced carbon reside in this pool globally and that it has a turnover time 6000 years. The average net oceanic carbon dioxide2 uptake of 2.1 gigatons (Quay et al., 1992) is only a fraction of a percent of the DOC pool so a perturbation in the DOC production or sink terms could strongly impact the balance between oceanic and atmospheric carbon. Yet the dynamics of this large pool remain an enigma, particularly in high latitude environments where concentrations of DOC can be very high. The specific objectives of this work are 1) to determine the concentrations of both the total and biologically labile pools of dissolved organic carbon in the coastal polynya of the Ross Sea during Phaeocystis- and diatom-dominated spring blooms, 2) to measure the rates of mineralization and production of DOC during these blooms in the surface mixed layer, and 3) to infer the export of DOC from the surface waters via deep mixing. This project will contribute to an improved under standing of DOC cycling in the Southern Ocean.